Recovery of Mangrove and Seagrass Ecosystems After HurricaneAndrew

Hurricane Andrew crossed south Florida in late August of 1992 producing considerable damage in the coastal ecosystem. In this study a group of researchers will assess damage to mangrove and seagrass habitats in the Shark River area and document the initial stages of recovery.